Effects of El Nino/Southern Oscillation on the Hydrology of South America

Drs. Caviedes and and Waylen will gather and analyze detailed information on precipitation and streamflow in parts of South America affected by the El Nino/Southern Oscillation (ENSO) phenomenon. The purpose of the research is to determine the influence of ocean-atmosphere anomalies on the surface hydrology of South America, in order better to understand how ENSO produces devastating floods in some areas and droughts in others. Whereas meteorological and oceanic research on ENSO has been intensive, work on the ecological impacts and geographical extent of the anomaly has been limited. This project will provide more information on ecological aspects of ENSO. The database that will be created will form a foundation for further research on ENSO and its consequences.